Louisiana Collaborative for Excellence in Preparation of Teacher (LaCEPT)

Louisiana Collaborative for Excellence in Teacher Preparation (LaCEPT) The Louisiana Collaborative, an integral part of the Louisiana Systemic Initiative Program (LaSIP), will engage the efforts of key stakeholders to institutionalize statewide reform of teacher education in mathematics and science. The specific goals of LaCEPT are to 1) establish a statewide consortium of key partners; 2) deepen understanding of reform issues; 3) develop a statewide strategic plan; 4) establish partnerships between school and college sectors; 5) reorder campus priorities and faculty rewards systems; 6) redesign preservice courses in mathematics, science and methods; 7) revise instructional materials; 8) increase the number of certified teachers in science and mathematics, focusing on underrepresented groups; 9) expand the boundaries of research and practice; 10) maintain national standards for teacher performance as students progress from preservice to certification to extended service. The signature program of LaCEPT will be sponsorship of campus-based renewal projects at Louisiana's public and private colleges and universities. Each campus will develop a plan for long-term systemic renewal and will fashion a distinctive proposal engaging mathematics, science and education faculty in the redesign of curriculum, instructional materials, assessment; mentorships and internships, partnerships with schools; research and technology centers; precollege recruiting of potential teachers; revision of certification standards.